Numerical Simulation of Fining Process in Glass Melting Furnaces

The process of glass fining involves the formation of bubbles, which are mostly generated by chemical reactions within the raw material, and grains, which are dislodged by the glass currents from the "batch blanket" i.e. from the slab of raw materials fed into the furnace. Occurrence of these imperfections in the final glass product depends upon glass circulation, temperature, gas chemistry and concentration, electric power density and location of air bubblers. Because of the complexity of the physical and chemical processes involved in glass manufacture, glass production has remained in part an art. This study is an attempt to develop a quantitative model of physical, chemical and transport processes in glass melting tanks. In the model, the number, distribution and size of both bubble and grains will be allowed to grow and/or shrink according to glass circulation, temperature, electric power density, location or air bubblers and dissolved gas concentration patterns within the glass melt. The model should provide a quantitative method of predicting the quality of glass, thereby leading to improvements in furnace design and reduction in glass defects.